Assessing College-Ready Computational Thinking

Because of the growing need for students to be college and career ready, high-quality assessments of college readiness skills are in high demand. To realize the goal of preparing students for college and careers, assessments must measure important competencies and provide rapid feedback to teachers. It is necessary to go beyond the limits of multiple-choice testing and foster the skills and thinking that lie at the core of college and career ready skills, such as computational thinking. Computational thinking is a set of valuable skills that can be used to solve problems, design systems, and understand human behavior, and is thus essential to developing a more STEM-literate public. Computational thinking is increasingly seen as a fundamental analytical skill that everyone, not just computer scientists, can use. The goal of this project is to develop learning progressions and assessment items targeting computational thinking. The items will be used for a test of college-ready critical reasoning skills and will be integrated into an existing online assessment system, the Berkeley Assessment System Software.

The project will address a set of research questions focused on 1) clarifying computational thinking constructs, 2) usability, reliability of validity of assessment items and the information they provide, 3) teachers' use of assessments, and 4) relationships to student performance. The study sample of 2,700 used for the pilot and field tests will include all levels of students in 10th through 12th grade and first year college students (both community college and university level). The target population is students in schools which are implementing the College Readiness Program (CRP) of the National Mathematics and Science Institute. In the 2020-21 academic year 54 high schools across 11 states (CA, GA, FL, ID, LA, NC, NM, OH, TX, VA, and WA) will participate. This will include high school students in Advanced Placement classes as well as non-Advanced Placement classes. The team will use the BEAR Assessment System to develop and refine assessment materials. This system is an integrated approach to developing assessments that seeks to provide meaningful interpretations of student work relative to cognitive and developmental goals. The researchers will gather empirical evidence to develop and improve the assessment materials, and then gather reliability and validity evidence to support their use. In total, item response data will be collected from several thousand students. Student response data will be analyzed using multidimensional item response theory models.

The Discovery Research preK-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics (STEM) by preK-12 students and teachers, through research and development of innovative resources, models and tools. Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects.